hp Finite Element Methods for Shells and Partitioned Domains

Suri 9706594 The investigator studies problems arising in the h-p finite element method. The first problem investigated is how h-p discretization of a complicated domain can be accomplished by partitioning it to several independent workers, and then reassembling the pieces, without assuming compatibility of the sub-meshes. The objective is to develop algorithms that use Lagrange multipliers at the interface together with proper mesh/degree combinations, and preserve the (exponential) h-p convergence rates obtained when the domain is analyzed without partitioning. The second problem is obtaining robust, mathematically certified h-p methods for shells. Finite element modeling of shells is complicated by boundary layers and locking phenomena, which seriously affect convergence rates when the shell is thin. The goal is to design methods free of locking (such as mixed methods), which resolve the boundary layers as well. The finite element method for solving differential equations incorporates a mesh --- a quilt of small pieces that fit together to make up the region where the equation holds --- and a set of functions, usually polynomials, for each piece of the quilt. Accuracy of the method depends on how fine the mesh is and how high the degree of the polynomials may be. The h-p finite element method couples mesh refinement with polynomial degree increase for enhanced accuracy and convergence. Finite element modeling is used extensively in industry, from aircraft and automobile manufacture, to structural analysis in civil engineering, to the precision design and fitting of e.g. electronic components. Many large or complicated problems (such as the modeling of an aircraft) must be first broken into separate pieces (such as the fuselage, wings, etc.), to be meshed separately. This project develops methods by which such components can be accurately and efficiently reassembled for the final modeling. Also, individual components (for example wings) are often ``thin'' and therefore modeled as plates and shells. The finite element modeling of shells poses special problems, and robust methods are developed and analyzed to address them. The research affects state-of-the-art engineering by influencing the development of (and finding application in) updated versions of commercial codes that have incorporated the new h-p finite element technology.